Third E. coli Genome Meeting: November 4-8, 1994 at Woods Hole, MA

9405561 Riley To carry out integration of information on the genome of the bacterium E. coli scientists working on E. coli in different areas will meet. The sequencers, cloners, geneticists, cell physiologists, biochemists, database builders and computer scientists all come from different perspectives that are now fusing. This meeting will facilitate the necessary interactions by bringing together leading researchers in the analysis of genomes at the genetic and sequence level, and will facilitate the coordination of the structural and functional analysis of this organism's genome. %%% The E. coli genome analysis efforts are likely to be the first which will achieve a complete sequence determination of a free-living organism. At this writing over 2000 genes and open reading frames have been sequenced, over 55% of the chromosomal DNA, and their gene products where identified are in the Swiss Protein database. The extensive genetic, physiological and biochemical knowledge of E. coli make this the best defined of all organisms. There is much excitement surrounding the unprecedented opportunity now to integrate these bodies of information as we approach total sequence E. coli DNA and all gene products. ***